Dynamic Behavior of Chemical Reactors

Analyzing the chemical and physical processes occurring in chemical reactor dynamics has practical uses over and above the elucidation of fundamental phenomena. An understanding of these processes and being able to determine the controlling parameters is necessary for design and scaleup of industrial reactors. This research project is a continuation of the principal investigator's work on the unsteady state behavior of electrochemical reactors. Such systems are ideal for fundamental studies of reaction dynamics because they are relatively stationary (they have less drift over the time scale of the dynamics) and they exhibit many types of interesting dynamic behavior such as complex periodic oscillations, low order chaos, quasiperiodicity, etc. The parameters are easily controlled (potential or current, for example) so that transitions among states can be investigated. In this project several dynamic phenomena will be studied using electrochemical reactions. The studies will include surface patterns and the relationship of temporal and spatial behavior, transitions from low order chaos to more complex phenomena, coupled systems, and studies of bifurcation among states. The experimental work will involve electrodissolution of metals, electrodeposition, and electrocatalytic reactions. The results will be analyzed using methods from nonlinear dynamics (including neural networks) and will compare experimental data with model predictions.